Graduate Student Scholarships to Advance a Global Outlook of Economic and Social Prosperity that Protects the Environment

This scholarship program provides up to eighteen need-based scholarships to an integrated community of academically talented MS and PhD graduate students who are educated in the economic, social, and environmental pillars of sustainability, well prepared to transfer research techniques and knowledge from their different graduate perspectives.

Engaging women and underrepresented groups in engineering builds additional capacity in these fields that are critical to advancing sustainability goals. The project explicitly provides scholarships to recruit, educate, and retain students into STEM fields (including underrepresented groups). It will facilitate knowledge sharing among MS and PhD graduate students and their faculty advisors. This project focuses student and faculty educational efforts on some of the most pressing challenges facing our global society, and catalyzes the development of the next generation of engineers with global awareness and the skills necessary to lead true change by engineering for a better future.